U.S. - U.S.S.R. Joint Research in Topological Fluid Dynamicsat Institute for Theoretical Physics

Dr. James S. Langer, Director of the Institute for Theoretical Physics, University of California - Santa Barbara, and Dr. George M. Zaslavsky, Head of the Department of Analytical Studies, Space Research Institute, Moscow, U.S.S.R., have organized a cross- disciplinary program in Topological Fluid Dynamics that will involve pure mathematicians and astrophysicists as well as fluid dynamicists. Leadership will be shared with Dr. Keith Moffatt of Cambridge University and Dr. Michael Tabor of Columbia University. The Soviet delegation will include Drs. Alexander Chernikov and Michael Natenzon from the Space Research Institute and Dr. A. Mikhailov from the Landau Institute of Theoretical Physics. The principal activity of the Institute for Theoretical Physics (ITP) is to organize and operate research programs in which visiting scientists can interact over an extended period with a sizable fraction of the world's most active scientists in the research area. An outstanding cross-section of leading topologists, theoretical and computational fluid dynamicists working on problems involving fundamental mechanisms of vorticity dynamics and turbulence, plasma physicists with expertise in problems of magnetic field topology and reconnection processes, and experts in Lagrangian chaos will meet from August - December 1991. The participation of the group of Soviet scientists will enhance the vitality and international nature of this program. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the U.S. and U.S.S.R. to combine complementary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.